Investigation of In Situ Interfacial Polymer Structure by Surface Sum-Frequency Generation

This Research Planning Grant is supported by the Analytical and Surface Chemistry Program. Professor Messmer and her students at Lehigh University will study the structure of polymeric interfaces with the aim to understand how the structure of polymeric chains affects the tribological properties of these surfaces. This work will correlate the orientation of surface chemical bonds and their conformation with properties such as phase transitions and frictional characteristics. In situ sum-frequency generation spectrometry will be used to determine the degree of bond order and structure for these polymeric surfaces because this second order optical method is sensitive only to interfacial regions and not to bulk properties that often dominate signals in surface spectroscopy. The work will begin with model diblock polymers composed of polyolefins and polyethylene oxide films on fused silica surfaces so that C-H stretching, and C-C bending and rocking modes can be quantified as a function of compositional and environmental variables. Results from this work will identify surface properties that strongly influence the frictional character of these interfaces. This work aims to develop a foundation for predicting the surface frictional properties of polymeric materials through the use of a surface sensitive spectroscopic method, in situ sum-frequency spectrometry. Model diblock polymers will be studied initially. Through sensitive measurements of the composition and structure of these polymeric surfaces, small features that greatly control surface friction will be established. This work has broad application in many important technological areas such as lubrication, anti-flocculating agents, and protective coatings.